Support for Annual Computation and Neural Systems Meetings, Monterey, CA, July 11-15, 1995

9512763 Bower This award provides three years of support for the annual Computation and Neural Systems meeting. The meeting brings together experimental and theoretical neurobiologists along with engineers, computer scientists, cognitive scientists, physicists and mathematicians interested in understanding how biological neural systems compute. Equal emphasis is placed on experimental, model-based and more theoretical approaches to understanding neurobiological computation. Speakers include both senior scientists as well as young scientists. This meeting is an important venue for introducing new computational techniques to the neuroscience community and for the formation of new collaboration in this relatively new highly interdisciplinary field. This award provides travel costs of post-doctoral fellows, graduate students and young faculty without grant support. It is the creative energy of new young scientists that will generate new theory in this field.